Extending Americas AI Training Data Leadership

America's ability to lead in artificial intelligence (AI) depends not only on algorithms and computing hardware, but on the quality and openness of the data used to train AI systems. Today, the public infrastructure for open AI training data is falling behind the pace of the field, creating barriers that favor well-funded institutions over small research teams, startups, and universities, while foreign competitors build proprietary, non-auditable data pipelines outside American oversight. This project establishes a public-philanthropic consortium to modernize the foundational data layer of AI development. The consortium reduces the cost and complexity of accessing large-scale web data, making it more affordable for a wider range of organizations to participate in cutting-edge AI research. It also expands the linguistic reach of publicly available training data from 160 to over 300 languages, ensuring that American-developed AI systems are competitive globally and can serve the needs of allied nations. By maintaining this critical infrastructure as an open, transparent, and auditable public good under American stewardship, the project protects against actors who seek to control how the world's AI systems are trained through closed, unaccountable data pipelines.

This project addresses a set of challenges now facing openly available, large-scale AI training datasets: rising access costs, uneven linguistic coverage, and weak provenance across the data supply chain. It uses the Common Crawl (CC) web corpus (one of the most widely used such datasets) as the vehicle for developing solutions, transitioning its pipeline toward a componentizable, modular architecture whose methods generalize to other open corpora. The technical work proceeds along two thrusts. First, the project lowers data access costs through cross-cloud optimization and strengthened web crawling protocols, with an estimated reduction in technical overhead of 30 to 50 percent for small research teams. Second, the project expands the linguistic scope of the datasets from 160 to over 300 languages by integrating real-time natural language processing (NLP) methods for proactive language detection. This approach pairs human-curated seed lists with low-resource language labeling models to actively guide crawlers toward underrepresented languages, shifting from post-hoc corpus analysis to proactive, intelligent data collection. To execute these activities, the project convenes a stakeholder workshop to prioritize technical requirements, then funds five to eight expert teams through a managed grant lifecycle. Research outputs include independent, reusable modules for deduplication and parsing, a standardized framework for metadata and relationship mapping, and provenance guarantees across the AI data supply chain. All results are released as open, reusable components (modules, standards, and provenance tooling applicable across open training corpora), ensuring lasting public benefit from the investments made under this award.